Acquisition of an Inductively Coupled Plasma Mass Spectrometer

This award provides one-half the funding necessary to acquire an inductively-coupled plasma mass spectrometer (ICP-MS) system that will be installed in the Department of Earth and Planetary Sciences at Harvard University. Harvard University is committed to providing the remaining funds needed for the acquisition. The ICP-MS system will satisfy the analytical needs of a number of research groups at Harvard, mostly (an estimated 70% of machine time) in the departments of Earth and Planetary Sciences and Anthropology. The remaining machine time is expected to be devoted to the needs of researchers in the Division of Applied Sciences, and the departments of Chemistry and Biology. ICP-MS is the technique of choice for obtaining both rapid and highly sensitive analysis of a wide range of elements and concentrations. Research projects at Harvard in need of such analyses cover a range of subjects from the study of ore forming processes, to the chemical evolution of the oceans, to river water chemistry, anthropology and archaeology, and ice cores.